U.S.-U.K. Cooperative Research: Intercalation of Low Dimensional Solids

9312176 Acrivos This three-year award supports U.S.-U.K. cooperative research in solid state chemistry between Juana Acrivos of San Jose State University and W.Y. Liang of the Interdisciplinary Research Center in Superconductivity, Cambridge University. The objective of their research is to determine how electronic properties of a layer solid are controlled by intercalation. Intercalation compounds are formed by insertion of various elements. These compounds are used in the synthesis of LDS (low dimensional solid) conductors and superconductors, materials for high duty batteries, catalysts, and solid lubricants. The U.S. investigator brings to this collaboration expertise in the preparation of LDS and intercalated compounds and the evaluation of their properties through magnetic resonance techniques (NMR), diffraction techniques and optical spectroscopy. This is complemented by the British Center's considerable expertise in high temperature superconductivity and synthesis of new superconductors. In this effort, the Center will supply and characterize crystals for intercalation. The project will advance our understanding of intercalation, an increasingly important, efficient and novel method for synthesizing new superconductors. ***